Iterated Monodromy Groups

Iterated monodromy groups

{First abstract.} The project explores new connections
between geometric group theory and dynamical systems via the
notion of the iterated monodromy group of a self-covering. It
relates a very active branch of geometric group theory (automata
groups and groups acting on rooted trees) with symbolic and
holomorphic dynamics. Before introduction of iterated monodromy
groups, groups generated by finite automata were mainly isolated
exotic (counter) examples. It is clear now that such groups appear
naturally in connection with iterations of self-coverings of
topological spaces (in particular iterations of post-critically
finite rational functions). This opens new perspectives of
application of holomorphic dynamics to group theory. On the other
hand, computational effectiveness of automata groups helps to
study deeper the combinatorics and symbolic dynamics of
self-coverings. For example, if the self-covering is expanding,
then its Julia set is uniquely determined by the iterated
monodromy group. The project suggests further investigation of the
connections between dynamical systems and automata groups. We
hope, in particular, to get new results in the theory of groups
acting on rooted trees, groups generated by automata, theory of
growth of groups, find new applications of geometric group theory
to combinatorics of iterations of rational functions and
polynomials.

{Second abstract.} The project brings together two branches
of Mathematics, which where not so close before: geometric group
theory and holomorphic dynamics. Geometric groups theory is a part
of algebra which studies large-scale properties of groups of
symmetries. Holomorphic dynamics studies iterations of rational
and polynomial functions and is a source of complex and beautiful
fractal structures such as Mandelbrot and Julia sets. Iterated
monodromy groups, introduced by the investigator, are naturally
associated with rational iterations and are groups encoding in a
compact symbolic form all the complex topological behavior of the
iterations and geometry of their Julia sets. The construction of
the iterated monodromy group is very natural, but groups obtained
in this way are very exotic from the point of view of classical
group theory. Difference between classical groups and iterated
monodromy groups resembles in some way the difference between the
``smooth'' geometric shapes of the classical geometry and fractal
``wild'' shapes of holomorphic dynamics. Algebraic properties of
iterated monodromy groups remain to be rather mysterious and a
part of the project is to understand them better. We are also
hoping that this new connection between group theory and dynamical
systems will be fruitful for both parts of mathematics, that we
will be able to use group theory to obtain new results in
holomorphic dynamics and to apply holomorphic dynamics to study
new classes of groups.